RUI: Studies of Nucleon Structure Using Electromagnetic Probes at Jefferson Laboratory

Our group continues to play a leadership role in experiments to
> elucidate the underlying structure of protons, neutrons, and other
> exotic particles at the Jefferson Laboratory, in Newport News,
> Virginia. In particular, over the next several years, we will be
> focused on a new experiment whose aim is to further our understanding
> of the quark spin structure of the proton. This experiment will
> measure the spatial distribution of charge and magnetization inside
> the proton - a topic which is currently of intense theoretical
> interest in the community. As well, we continue to be involved in the
> research and development efforts for experiments which will be carried
> out following the planned energy upgrade of the Jefferson Lab
> accelerator. These experiments will strengthen our quantitative
> understanding of the observed phenomenon of quark confinement in nature.
>
> Education of undergraduate and masters-level graduate students is a
> central component of our group's research program. We are strongly
> committed to this pursuit, and will continue to provide meaningful and
> useful research experiences to our students; indeed, our association
> with Jefferson Laboratory provides us with a unique opportunity to
> accomplish this goal. Our major projects provide a multitude of
> opportunities for our students in the areas of pure and applied
> physics, computer engineering, and computer science, and also provide
> excellent training in such topics as design, instrumentation,
> simulation and modelling, analysis techniques, and critical judgment.
>